Antarctic Working Group for Geology and Geophysics 1996 - 1998

Goodge 9615562 Abstract This award supports four meetings of the Antarctic Working Group for Geology and Geophysics (ANTWG^3) over the two year from 1996- 1998. The ANTWG^3 affords a broad conduit for exchange of information between the Antarctic Geology and Geophysics Program within the US Antarctic Program (USAP), and the diverse parts of the broadly-defined Antarctic earth science community. As such, it is a forum for discussion of the future goals of Antarctic geological and geophysical research, and the future needs of researchers from the operational and science support portion of the USAP. More specifically, the Working Group brings to the program ideas about emerging scientific and technical opportunities within the fields of geology and geophysics, programmatic needs, and programmatic opportunities as perceived by the wider earth science community. The Working Group also serves to provide feedback to the program on current logistical and science support issues related to ongoing activities. The information exchange between the research community and the Antarctic Geology and Geophysics Program, that is facilitated by the ANTWG^3, allows the US Antarctic Program to be better positioned to support future cutting edge geological and geophysical research and it also promotes better information exchange amongst investigators interested in geological and geophysical research in the Antarctic.